A Sea Beam 2000 Multibeam Echo Sounder for R/V Melville

This project will supply shipboard scientific equipment for the research vessel MELVILLE, operated by the Scripps Institution of Oceanography, and dedicated to use in support of ocean science research. The Shipboard Scientific Support Equipment Program provides funds for ship equipment deemed essential to the proper and safe conduct of ocean science research. This Program provides support for such items as deck equipment including winch systems for the deployment and retrieval of scientific instruments, navigational equipment such as radars, gyroscopes and earth satellite receivers to pin point the location of research sites, communication equipment including radio transceivers and satellite transceivers for voice and scientific data communications and other equipment such as motorized workboats for transporting scientists to and from data retrieval sites. The Project Director, George G. Shor is fully qualified to direct this project having had considerable experience in overseeing the acquisition and installation of shipboard equipment. This project will allow the institution to install a Sea Beam 2000 Multibeam Echo Sounder on the R/V MELVILLE. In addition to the NSF contribution, total costs are being shared by the Scripps Institution of Oceanography, the Office of Navy Research and the Keck Foundation.